I-Corps: A Noninvasive Plasmonic Sensing System for Detecting Diabetes from Breath Acetone

The broader impact/commercial potential of this I-Corps project is to provide a painless and convenient solution to diabetes patients to help them self-manage the disease. It will also help pre-diabetic people determine blood glucose levels at an earlier stage. This project will explore translation mechanisms for a novel sensor that can be measured with commercial electronic products, such as a smartphone camera. The system also uses artificial intelligence to help interpret the results.

This I-Corps project provides an artificial intelligence-based plasmonic sensing system for gas sensing and biosensing purposes. The project uses specially designed and fabricated nanostructures with a plasmonic sensor generating an optical signal at visible wavelengths. The resulting signal can be measured by a CMOS camera. A neural network-based data analyzing system is used to study the images and thus classify and quantify the target analytes.